Synthesis and Processing of Carbon Black Macromonomers for Design of Advanced Separation Systems for Adsorption and/or Filtration of Trace Contaminants

The goals of this project are to design reaction moldable, carbon black macromonomers which can selectively and quantitatively remove a wide range of trace contaminants from the environment and would also permit for recovery and reuse. This will be accomplished by first controlling the chemical nature of both high and low surface area carbon black particles to provide a range of acidic, basic, neutral or high polar surfaces in the pores. The investigator will then introduce a variety of reactive units onto the surface of the carbon black to make it behave as a polymerizable macromonomer. This will be done through 1) chemical reactions, 2) reaction of surface sites with oligomeric units such as resoles, or 3) through coating with very thin polymeric films, such as polyacrylic acid. These macromonomers will then be reaction molded to specific shapes through crosslinking of the reactive groups on the surface. This new approach to environmental control could address most of the limitations associated with the activated carbon systems typically in use today. Features to be investigated in depth include: 1) the surface area changes associated with different chemical treatments, 2) the determination of mechanical properties of the reaction molded macromonomers and the feasibility for reactivation of these molded shapes through electrical resistance heating, 3) the selective adsorption of trace contaminants using the various chemically treated systems, 4) the design of graded depth filters for particulate filtration in the range of 50-500A, and 5) separation of ionic aggregates where the surface of the interstitial opening is designed to display a specific ionic character.